Automated Inspection for Quality Control in the Flexible Manufacturing Laboratory at Western Kentucky University

This project introduces over 156 undergraduates per year to automated inspection techniques for quality control in flexible manufacturing. Students use a coordinate measuring machine and a two camera vision system for precision measurement; to set machine tools in machine tool holders; to conduct machine tool capability studies; and to perform a 100% inspection of parts before and after machining operations. This is significant for the Computer Integrated Manufacturing Technology major at Western Kentucky because it provides the student hands-on experience with automated inspection instrumentation prior to entry into industry. This award is being matched by an equal amount from the principal investigator's institution.